Support for Symposium on R&D for the NII

9408791 Weingarten The Computing Research Association requests partial support for a joint industry, academic, and government technical symposium to explore and plan the R&D agenda for the National Information Infrastructure (NII). The symposium is a joint project of several industry and academic groups and is undertaken in cooperation with the National Institute of Standards and Technology and the Committee on Technology of the Applications Committee of the government's Information Infrastructure Task Force. Funds will be used to partially defray travel costs of the academic attendees and to pay for post forum editing and costs for disseminating the resulting report.